Topoclimate and plant distributions on the Cape Peninsula (South Africa): implications for resilience to climate change

Anthropogenic climate change poses a threat to biodiversity across the globe. One of the most important responses for a species that is sensitive to climate is migration and a shift in species distributions across a landscape. In mountainous landscapes, fine-scale variation in topography (south vs. north-facing slopes, cold air drainages, etc.) can generate a wide range of climate conditions over a fairly small spatial scale. This variability may allow plants and animals to respond to global climate change through local shifts in distribution, providing spatial resilience in the face of temporally changing conditions. This project will examine the influence of topography on microclimate and plant distributions in Table Mountain National Park, part of the mega-diverse Cape Floristic Region of South Africa. Distributions of shrubs in the Proteaceae will be examined in relation to fine-scale topographic variation at a 30m pixel scale. A detailed study of diurnal and seasonal temperature variation will be conducted to quantify elevational lapse rates, the occurrence of marine inversion layers, and the small-scale effects of slope, aspect and cold air drainage. The results will be used to develop a spatial model of topoclimate and to refine statistical models of plant distributions in relation to climate. Finally, future climate scenarios will be downscaled to a fine spatial scale, and combined with species distribution models to test the hypothesis that topoclimatic heterogeneity will enhance population persistence in the face of climate change.

In connection with the proposed research, the PI will teach a two-week short course for South African graduate students on statistical methods in spatial analysis and phylogenetics. Participation by students from underrepresented economic and ethnic groups will be encouraged. The workshop will contribute to development of statistical expertise and the professional careers of participating students, and build a foundation for continuing international collaboration.